Conference: Microlocal Analysis and Spectral Theory

This award provides funding for US participation in the conference "Microlocal Analysis and Spectral Theory" that will be held on October 12-13, 2019 at University of California-Berkeley.

The conference focuses on recent developments in analysis, especially in the fields of microlocal analysis. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at: https://math.berkeley.edu/~zworski/rbmconf.html